Experiments in Receiving Water Analysis

As a part of an Environmental Analysis major a new laboratory course is being developed in "Receiving Water Analysis." Experiments are being developed and tested involving measuring the amount of dissolved oxygen in different situations and to evaluate parameters such as, reaeration constants, decomposition constants, and diffusion and dispersion constants. The Ion Chromatograph is being used to monitor inorganic ions such as nitrates and phosphates to evaluate empirical constants for use in classical water quality mathematical models. A laboratory manual for the course is being planned to indicate the possibilities these experiments provide for students in environmental studies.